NUE: Vertical Threads for Nanotechnology in the Chemistry Curriculum

This Nanotechnology in Undergraduate Education (NUE) award to Professors Delana A. Nivens, Will E. Lynch and Ronald R. Williams of Armstrong Atlantic State University provides for the introduction of nanotechnology in "vertical threads" throughout the university's chemistry curriculum. Synthesis, spectroscopy and adaptation of nanomaterials will be incorporated into the laboratories of a variety of chemistry courses from freshman to senior level. Using vertical threads, general chemistry students will be introduced to the vast, novel and interdisciplinary nature of nanomaterials, thereby maximizing the impact on both chemistry majors and other science majors. Vertical threads allow students to revisit the same nanomaterials with an expanding variety of applications.

The proposal for this award was received in response to the Nanoscale Science and Engineering program announcement, NSF 02-148, category NUE. The focus is on developing laboratories that will introduce the field of nanoscience to undergraduate students. The project is expected to have a positive impact on educating female and minority students and also on students from rural communities.